CAPPS: Effect of extended cold and cold/acid storage on subsequent heat, acid, and freeze/thaw tolerance and virulence factor expression of Escherichia coli O157:H7

EEC-0084731
Drake

This Study will address the effects that extended cold storage conditions such as those encountered in extended shelf life refrigerated foods (cold stress, cold/acid stress) have on subsequent growth characteristics, heat tolerance, acid tolerance, freeze thaw stability, and virulence factor expression of E. coli O157:H7. Studies will be conducted in broth as well as in a model food system, skim milk. A better understanding of the effects of cold storage and cold/acid storage on subsequent growth characteristics and virulence of E. coli O157:H7 will enable design of food processing and storage regimes to minimize risk and will expand knowledge of cold adaptation of this foodborne pathogen.